US-Czech Joint Fund Research on Gravity Theories and Black Holes

Under this US-Czech Joint Fund research project, Dr. Jiri Niederle, Institute of Physics, Czech Academy of Sciences, and Dr. Karel V. Kuchar, University of Utah, will examine three topics in quantum theories of gravity and black hole astrophysics: 1) Gauge formulation of gravity theories, 2) Fermion- boson quantum equivalence, 3) Minisuperspace quantization, and 4) Black hole electrodynamics and the membrane paradigm. In gravity theories, the researchers expect to clarify the status of gravity or supergravity as a gauge system, to extend the fermion-boson equivalence from 1+1 to 3+1 dimensions and to provide the general framework for minisuperspace quantization and apply it to spacetimes with horizons. In relativistic astrophysics, they intend to clarify the energy generation close to the horizon of a rotating black hole in simplified dynamo models of active galactic nuclei. This research in theoretical physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the U.S. and Czech Republic to combine complementary talents and pool research resources in areas of strong mutual interest and competence. Funds for the project are awarded through the US-Czech Joint Fund, Prague, in accordance with established guidelines.